Everyday Mathematics, 4-6: A Curriculum for 4th-6th Grade Students w/K-3 Prerequisites

The every day Mathematis: 4-6 Project is to create a complete mathematics curriculum for grades 4, 5, and 6. It assumes that entering fourth graders have had a rich and varied mathematical experiene in grades K-3. The materials build on the Everyday Mathematics K-3 curriculum. The Everyday Mathematics Curriculum emphasizes explorations of data and mathematical modeling in common life situations and in the natural and social sciences, arts and language. Mathematics' structures and algorithmic procedures are attended to as important issues in effective mathematical modeling. Pedagogic approaches emphasize small group and partner cooperative work.